Galois Structure and Arithmetic Geometry

The principal investigator will apply tools from arithmetic
geometry to study invariants attached to the actions of finite
groups on schemes. These invariants are Euler characteristics
associated to different kinds of cohomology. Methods
of computing these Euler characteristics will be studied,
along with their connection to L-series, Arakelov theory
and the theory of motives. The principal investigator
will also work on two other projects. These are to
complete earlier research relating capacity theory
to arithmetic intersections theory, and to study
the universal deformation rings of representations
of finite groups and their applications to Galois theory.

This proposal concerns using geometric ideas to study
the solutions of systems of algebraic equations. In geometry,
it is often useful to consider the symmetries of an object,
which are the ways the object can be rotated or flipped
back onto itself. Another geometric idea, which goes back
to the mathematician Euler, is that one can attach certain
numbers ("Euler characteristics") to objects. These
numbers provide a measure of complexity, and in simple
cases they count various natural features, such
as the number of holes in the object. The current proposal
has to do with studying the symmetries of systems
of equations, and how one can assign natural Euler characteristic
numbers to them. The goal of this is to carry over to algebra
some of the insights gained in geometry from considering
symmetries and Euler characteristics. Systems of equations
arise from many different mathematical applications.
Euler numbers and symmetries can in many cases be used
to either rule out or count the number of particular
kinds of solutions to such equations.